Electrokinetic Soil Processing: Feasibility of Removing Organic Contaminants

The feasibility of using electrokinetics to remove organic contaminants from soil and groundwater will be investigated. A better understanding of the fundamental aspects of electrokinetic soil processing is indispensable to state and federal environmental programs and to the private waste management industry. Improvement of electrokinetics soil processing could result in a significant impact on waste remediation technology in the nation.